Computability Theory, Reverse Mathematics and Countable Algebraic Structures

In computable algebra, one applies the methods of classical
computability theory to study computational properties of algebraic
structures. Solomon proposes to study several questions concerning the members of
these and other classes of algebraic structures. Do the members of a
given class display the most general forms of ineffectiveness found in
computable algebra? Are instances of ineffectiveness caused by the
coding methods (and hence can be removed by a reasonable coding) or by
some inherent property of the underlying algebra (and are therefore
unavoidable)? How does adding structure (such as an ordering) to the
members of a class effect the computational properties? These
questions aim toward a deeper understanding of the connection between
computation and algebraic behavior in mathematics.

Many theorems in mathematics state that given certain conditions, a
particular mathematical object must exist. There are numerous ways to
study the effectiveness of such a theorem. One method, called
computable or recursive mathematics, uses an idealized model of a
computer in which computations are allowed to run for arbitrarily long
(but finite) amounts of time and to use arbitrarily large (but finite)
amounts of memory. The fundamental question is whether such an
idealized computer can construct the desired mathematical object from
the theorem. If the answer to this question is no, then the theorem
uses a method of construction that cannot be performed on an actual
computer no matter how much technology increases computer speed and
memory size. Because this question requires that mathematical objects
be coded into the binary language of computers, the answer sometimes
depends on the type of coding used. Solomon proposes to study a number
of algebraic constructions from this point of view and in particular to
study when ineffectiveness is caused by a poor choice of coding (and
hence can be fixed by a better choice of coding) and when it is caused
by inherent conflicts between mathematical structure and computation
(and hence cannot be removed by clever coding). Solomon also proposes
to use a second method, called reverse mathematics, to study the
effectiveness of numerous mathematical theorems. In this approach, one
isolates the mathematical axioms required to prove the theorem.
Reverse mathematics and computable mathematics are closely related. If
only simple axioms are required to prove a theorem, then it is likely
that a computer can carry out the construction, while if complicated
axioms are required, then a computer probably cannot perform the
construction.